Community College Information Technology Network

Sinclair Community addresses the shortage of information technology (IT) technicians by working with local industry to develop curricula that educate students for rapidly changing competencies needed by the workplace. IT curricula are integrated from high school through the associates degree with emphasis on using the IT skill standards and implementing instructional materials developed elsewhere. The project builds on a fundamental IT skills and employability skills to provide specialties in networking and telecommunications, web technologies, and programming and analysis. A "Fast-Track" intensive certificate program provides students with work experience and an advanced skill set in programming and analysis. Professional development for faculty includes industrial experience and short courses in pedagogy and content both for full-time and part-time faculty. Working with a local institution employable IT skills are provided to the visually impaired. Evaluation is done in conjunction with other projects. Dissemination is done by links to three other community college systems.